Experimental Investigation of Two Advanced Heat Pump Cycles

Heat pumps are an important commercial product whose use will increase in the years to come. It is also a fact that U. S. heat pump technology is slipping behind that of other countries. This research sets forth some novel heat pump cycles and also will verify the concepts by experiment. It is expected that the results of this work will enable the U.S. position in heat pumps to be restored.